EPSCoR Graduate Fellowship Program (EGFP): Boise State Microelectronics Education and Research Fellows

The National Science Foundation (NSF), NSF EPSCoR Graduate Fellowship Program (EGFP) supports EGFP-designated institutions/programs in EPSCoR jurisdictions by providing funding for graduate fellowships for eligible applicants. Institutions receive a total of three years of stipend and associated cost-of-education (COE) allowance for each NSF EPSCoR Graduate Fellow.

This award at Boise State University seeks to enhance research competitiveness and capacity through an investment in talent development. Fellow research topics will align with goals and programs supported by the NSF Directorate for Technology, Innovation, and Partnerships (TIP). As part of the Microelectronics Education and Research Center (MERC), the program integrates students into a robust ecosystem that spans six interdisciplinary Ph.D. programs: Engineering, Electrical and Computer Engineering, Biomolecular Sciences, Computing, Materials Science and Engineering, and Biomedical Engineering. In addition to conducting fundamental research, Fellows are guided through a structured program involving mentorship, career readiness, and experiential learning designed to bridge the gap between academic research and the demands of the global semiconductor market.